REU Site: Extremal Graph Theory and Dynamical Systems at RIT

The REU Site in Extremal Graph Theory and Dynamical Systems at the Rochester Institute of Technology (RIT) will actively engage ten students in each of the summers of 2027, 2028, and 2029 in research experiences in the mathematical sciences. Research projects will span multiple areas and some of them will explore applications to quantum information theory. All students will work directly with RIT faculty for the entirety of the program and will receive mentoring in mathematical research practices, as well as in written and oral communication, as well as ethics in the profession. Students will give presentations on their research findings at the end of each week. Results from research projects will be disseminated through publications in refereed journals, presentations at national and regional mathematical meetings, and presentations at the students' home institutions. Students will be encouraged to pursue graduate studies and employment in the mathematical sciences. During the program, students will also participate in an Ethics in Science Workshop. The recruitment efforts will target students from universities, liberal arts colleges, and community colleges.

Research projects will be in the areas of graph theory, linear algebra, and dynamical systems, some of which are linked to mathematical biology. Their impact will be seen in the areas of discrete and applied mathematics. Applied projects will include modeling of cardiac arrhythmia and analysis of complex networks related to global climate systems. Projects with a theoretical focus will include problems from algebraic and spectral graph theory and linear algebra. The faculty and student participants will utilize mathematical software packages including Mathematica, Matlab, Sage, and Nauty to help with computations and simulations.